Science City

The goal of Science City: New York as a Science and Technology Exhibit, is to increase public awareness and interest in science and technology in daily life by creating "found exhibits" in public places throughout New York City. This proposal is based on a 1986 pilot project which developed criteria and concepts for successful Science City units and a prototype exhibit operating in a tourist elevator at the World Trade Center. Science City will use the streets and structures of New York to present the science and technology of everyday life. It will reach the science inattentive public who do not go to science museums. Eye-catching exhibits such as diffraction gratings mounted on bus shelters will reveal the different spectra of the incandescent, flourescent, neon, and mercury vapor lamps, already part of the street scene. The New York Hall of Science will place Science City exhibits in public parks, subways, bus kiosks, and building lobbies. Ten to fifteen different exhibits/signs, each replicated an average of 10 times, will be installed and evaluated throughout the boroughs of Queens and Manhattan.